Ironworking And Culture Change Among the Swahili of Kenya

Under the direction of Dr. Richard Davis, Mr. Chapurukha Kusimba, a graduate student at Bryn Mawr, will collect archaeological data for his doctoral dissertation. His research will focus on the Swahili speaking region of the Kenya coast and he will attempt both to reconstruct the Iron Age prehistory of the region and to set this into an ethnographic context. In particular, he will examine the role of iron technology in culture development and change. Although traditional iron working is no longer practiced in this area, elderly men still have knowledge of the techniques. Therefore, in the ethnographic phase of this project, Mr. Kusimba will conduct extensive interviews. He will also observe iron smelts conducted for his benefit and collect samples of raw materials, slag and finished products. These, as well as similar remains collected by archaeological excavation, will undergo laboratory analysis. In a second phase of the project, he will conduct a regional archaeological survey and excavate at the site of Mtwapa which is located near Mombasa. The site consists of approximately twenty acres of mud brick ruins and dates to the Iron Age. Data from Mtwapa will serve not only to examine prehistoric iron working techniques, but also to show how this major site developed and then declined over time. The Swahili peoples are distributed along the East African coast and they were transformed in less than a millennia from small scale fishing and agricultural groups into an urban, literate, Islamic and maritime trade oriented civilization. While a central aim of archaeological research is to understand the development of social complexity, relatively little attention has been devoted to this case. Mr. Kusimba wishes to determine the role which technology played in this transformation. Because iron was crucial to sub-Saharan peoples and because it was locally produced, it provides an excellent focus for Mr. Kusimba's study. This research is important for several reasons. On an empirical level it will collect data on traditional metalworking techniques which (given the age of remaining practitioners) would otherwise soon be lost. It will increase scientific knowledge of East African prehistory and assist in the training of an extremely promising young scientist